Evolution of Pollen Development in Orchids

; R o o t E n t r y F t fB C o m p O b j b W o r d D o c u m e n t * O b j e c t P o o l t fB t fB F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; Oh +' 0 D h @ d R:\WWUSER\TEMPLATE\NORMAL.DOT P:\CELL\ABSTRACT\9418015.ASC Una Solomon Una e = e / * / j j j j j j j M C / T F M j M j j j j ~ j j j j 7 9418015 Brown and Lemmon Pollen development in orchids is a promising new system for studying ontogenetic aspects of plant evolution. Precise nulcear and cytoplasmic divisions occur in both meiosis and pollen mitosis in the absence of a preprophase band of microtubules (PBB). In addition, microsporocytes differ in that karyokinesis and cytokinesis may be temporally uncoupled resulting in a brief coenocytic stage before simultaneous quadripartioning into a tetrad of microspores. In simulatneous cytokinesis, phragmoplasts develop between non-sister as well as siter nuclei providing additonal information on phragmoplast development and the determination of division plane. On the basis of recent comparative studies we have put forth the hypothesis that the direct control of division plane in cells lacking PPBs is a function of nuclear-based radial microtubule systems (RMS) that define domains of cytoplasm. The nuclear cytoplasmic domain model assumes that spindle alignment, and therefore placement of nuclei, stems from establishment of division polarity which, in turn may be subject to various levels of contol. We propose comparative, developmental and experimental studies of the organization and functional interactions among cytoskeletal elements (microtubules and F actin), organelles, and endomembranes in pollen development. Since the cytokinetic apparatus in microsporogenesis is much more variable than histogenesis, we will use comparative studies to identify commonalities that underlie events of pollen development. Both the microsprorocytes and pollen of orchids are amenable to modern methods of immunocytochemstry and electron microscopy. The generative pole microtubule system (GPMS), which we recently discovered in the exineless pollen of moth orchids, provides a targetable structural marker for drug perturbation sutdies aimed at understanding the establishment of polarity and organization of microtubles of the unequal first division in pollen that is critical to development of the male gametophyte. %%% This is a proposal by highly regarded senior investigators working on cytoskeletal involvement in establishing planes of cell division and on the formation of cytoplasmic domains which may orient division. The system they have selected, pollen formation in orchids, is chosen because underlying mechanisms are often revealed by thematic variation. The orchid family offers much variety in mode of meiotic and mitotic cytokinesis and in the availability of complex hybrids which undergo faulty meiosis during pollen formation. Pollen division is particularly interesting because the structure which determines the future site of cell division, the pre prophase band of microtubules, is missing. The goa ls of the proposal are to 1) investigate the establishment of division polarity in meiosis and pollen mitosis, 2) investigate the relationship of the radial microtubule system associated with the cell nucleus to the organization of the microtubules involved in laying down the daughter cell wall during division , 3) establish if cytoplasmic domains defined by co-extensive microtubules control the division plane during meiosis and pollen mitosis, and 4) relate the data on pollen development to the evolution of the diverse pollen types found in the Orchidaceae. With regard to objectives (2) and (3), this work has the potential to reveal the importance of nuclearassociated microtubules in microtubule growth and initiation in plants in general. Its identification as a microtubule organizing center (MTOC)cell biology. The microtubules of plants have been shown to have a dramatic influence on plant cell shape and size. The cortical array associated with the plasma membrane helps determines the axis of cell extension, while the array associated with the cell division plane helps determine the morphogenesis of plant tissues. These phenomena are the bases for the production of potent, selective herbicides which take advantage of the differences between plant, animal, and fungal cytoskeletal assembly. Work proposed here will offer additional insight into those mechanisms unique to plants which control cytoskeletal assembly. In addition, insights gained by this analysis of cytoskeletal involvement inthe nature of pollen formation in plants will contribute fundamentally to our knowledge about plant reproduction. *** ;